Mathematical Sciences Computing Research Environments

9508411 Puckett The Department of Mathematics at U. C. Davis proposes to purchase a DEC Alpha 2100 computer and peripheral devices. This equipment will be used to support research in Large Scale Scientific Computation, Geometry, Asymptotic Analysis and Mathematical Physics. This research will include the use of symbolic mathematics computer languages and the development of graphical interface tools for interactive computing and the display of data.